Two-Year Technician Education and Transfer Programs: Tapping the Potential of Undergraduate Research

This project is exploring the current status of undergraduate research, identifying potential partners, developing resources, and creating a plan for establishing new partnerships that promote undergraduate research in community college technician education programs. It is defining existing resources for research that meet the needs of the faculty and students; identifying research models that suit the needs of community college faculty and students; identifying faculty and administrators who are supporting research through leadership roles; outlining relevant issues regarding undergraduate research; and establishing a professional development institute.

The long term results of this project are a "how-to" book on undergraduate research at community colleges and a new professional development institute on undergraduate research in community colleges that is offered on a regular basis.